Cosmology and Particle Physics

Research in cosmology and particle physics will focus
on the nature and distribution of dark matter in the universe. Using very high resolution simulations and other methods, the project will investigate all the issues that have been raised concerning the hypothesis that cold dark matter (CDM) makes up most of the dark matter in the halos of galaxies. If any of these issues actually turn out to be serious problems, it may mean that the main component of dark matter in galaxy halos and on larger scales is not CDM, and it may give us clues regarding the properties of the dark matter. The project will also study the implications of the simulations and data for dark matter detection via the detection of the mutual annihilation of particles that make up the dark matter. The research will also study the constraints on cosmological parameters, including neutrino mass, from cosmological structure formation, in particular the formation of far away galaxies. This work is very important, since it will clarify the nature of most of the matter in the universe.